Mathematical Sciences: Workshop: Statistical Image Analysis - July 1-5, 1996

Billard The proposal requests support for fifteen U.S-based individuals from academic and nonprofit institutions to participate in the Workshop on Statistical Image Analysis to be held in Sydney, Australia, July 9-12, 1996. The workshop will be held in conjunction with the Sydney International Statistical Congress. About one-third of those supported will be those with an official capacity and two-thirds will be new researchers, especially those traditionally underrepresented groups such as women and minorities. Availability of awards will be advertised in publications of the ASA, the IMS and the Biometric Society. Awardees will be selected by an Awards Selection Committee.